Intermediate Energy Nuclear Research (Physics)

The proposed work focusses on photo-nuclear physics and a study of the photodisintegration of the deuteron at SLAC, where earlier work showed that at about 1.4 GeV a quark description becomes possible. The study will be continued to higher energies. A recoil detection technique which is ideally suited for use with internal targets has been perfected and will be used to measure radiative capture at intermediate energies. Several pion production studies have already been made. The technique can be used to full advantage at the Indiana Cooler Ring and at GSI and radiative capture experiments are planned at both places. At low energies, a study of radiative proton capture on Aluminum showed that direct capture is the dominant nonresonant mode below 2 MeV. An electron induced proton knockout experiment at Bates found an anomalously long mean free path for 180 MeV protons in nuclei and it is expected that these measurements will be extended to higher energies.